Concentration Phenomena in Diffusion and Cross-Diffusion Systems

Proposal DMS-0400452
Title: Concentration phenomena in diffusion and cross-diffusion systems
PI: Wei-Ming Ni (University of Minnesota- Twin Cities)

(I) Technical Description:

Professor Ni plans to continue his research in understanding
mathematically the effects of various diffusion-related mechanisms. Using
variational approach and techniques in classical analysis, Professor Ni
and his collaborators have established the spike-layer steady states for
an activator-inhibitor system in morphogenesis proposed by Gierer and
Meinhardt based on the celebrated idea - diffusion-driven instability - of
Turing in 1952. The method exploits the gap between the diffusion rates
for the two chemical substances, and stability results in one space
dimension have also been obtained. Very recently, progress has been made
for concentration phenomena on multi-dimensional subsets. However, the
complete dynamics is still far from being fully understood. It has been
noted that the gap between the diffusion rates alone is insufficient to
create patterns. Thus, the notion of "cross-diffusion," introduced by
theoretical biologists in 1979 in modeling segregation phenomena in
population dynamics, deserves systematic studies. Cross-diffusion systems,
which have also been used in recent years to model singular phenomena
including dendritic growth of bacteria colonies, are both nonlinear and
strongly-coupled in highest order terms, thus are mathematically very
challenging. Professor Ni and his collaborators propose to study the
effects of cross-diffusion by first obtain necessary and sufficient
conditions for cross-diffusion to help create patterns, and then to
investigate their qualitative behavior as well as their stability
properties.

(II) Non-technical Descriptions:

Professor Ni plans to continue his research in understanding, in a
mathematically rigorous manner, the phenomena and effects of various
diffusion-related mechanisms and hopefully thereby to have some impact in
both improving our ability in modeling more complicated and/or realistic
phenomena in applied sciences, as well as in creating new and significant
mathematics. In this proposal, from the viewpoint of pattern formation,
Professor Ni intends to investigate the various "concentration phenomena"
in diffusion and/or cross-diffusion systems. These, in particular, include
Turing patterns in chemical reactions (e.g. the CIMA reaction),
Gierer-Meinhardt's activator-inhibitor systems in modeling the
regeneration phenomena of hydra in morphogenesis, a nonlinear diffusion
system modeling dendritic growth of bacteria colonies, and the
Lotka-Volterra competition systems with inter-specific population
pressures taken into considerations."